Information Technology Plan: Internet and Remote Connectivity

D'Youville College requests support from NSF to connect it's campus to the Internet. D'Youville College is an independent liberal arts institution in Western New York with nearly 2000 graduate and undergraduate students. The College intends to connect to the Internet through the NYSERNet, a local Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.